CAREER: Intelligent Multi-Media Environments

The overall goal of this research with intelligent multi-media environments
is to produce automated and relevant high-quality signal capture in
enclosures populated with a variety of sensors (e.g. microphones, video
cameras, etc.) without the active supervision or distraction of the
system's human users. This involves incorporating several information
modalities and processing methods. In particular, the fusion of raw
acoustic and visual data provides an effective means for producing both
high-quality speech and video. An active analysis of the video stream is
performed to make intelligent decisions regarding appropriate camera
selection, image framing, and evaluation of the proceedings' semantic
content. Novel multi-channel speech processing methods are employed to
enhance distant-talker speech acquired in the presence of background noise,
reverberation effects, and competing signals. A number of practical
scenarios stand to benefit greatly from advances in this field. These
include environments with adverse noise conditions and multiple active
(possibly uncooperative) talkers, such as those found in video-conferencing
and satellite classroom environments, on a stock market floor, in a
military operations setting, under surveillance procedures, with theater or
sporting events, or in a biomedical context.

This research includes three project areas addressing the intelligent
multi-media problem described above, specifically: 1) acoustic and
visual-based systems to track and analyze participants, 2) multi-channel,
model-based approaches for distant-talker speech acquisition, and 3) hybrid
continuous-discrete methods for speech enhancement using multi-modal data.
These three modes of research focus upon a large subset of the intelligent
multi-media problem and are inherently linked to one another. For instance,
the speech acquisition and enhancement projects depend upon source location
data provided from the hybrid tracker while the tracker benefits from the
improved acoustic signals resulting from speech enhancement work.